Manifolds with Lower Curvature Bounds and Their Limits

This proposal is concerned with the effect of curvature bounds on
the local geometric properties and global topology of Riemannian
manifolds with various sectional and Ricci curvature bounds and
of their Gromov-Hausdorff limits. The principal investigators
will study the structure of the singularities that spaces
satisfying some natural geometric assumptions can
develop. Understanding the structure of such singularities can
often give a lot of information about the topological properties
of such spaces. They will study the structure of Gromov-Hausdorff
limits of manifolds with Ricci curvature bounded below; topology
of convergence with lower sectional curvature bound; the
structures of the fundamental groups for manifolds with lower
curvature bound; optimal bound of isoperimetric constant;
obstructions to nonnegative curvature on simply-connected
manifolds.

Geometric objects such as manifolds appear naturally in science
and engineering, as configuration spaces, as Einsten's model of
universe. Ricci curvature is a fundamental concept in Einstein's
general relativity. Thus the fundamental research in these area
should not only be important in its own right but also should
have implications in physics and engineering.